Creating Windows of Opportunity for Success in the SMET Areas

Jarvis Christian College, ``the college with the personal touch and where
dreams come true,'' proposes an aggressive and comprehensive model Historically
Black College and Universities Undergraduate Program (HBCU-UP), engaging a
community of academic partners working together to significantly increase minority
participation and access to science careers. The Program goal is to develop,
implement, evaluate and institutionalize a program that will achieve and sustain a
high quality and competitive science, mathematics, engineering and technology
(SMET) education program. The comprehensive program proposed for Jarvis
emphasizes the following four elements: Pre-College Outreach Programs;
Undergraduate Student Scholars; Faculty Development Opportunities; and
Curriculum, Equipment and Laboratory Development. The specific objectives are:
(1) to implement a summer enhancement and skills development summer workshop
for rising high school students who have demonstrated an interest and aptitude in
the science areas that will ensure that 80% of the participants will complete the
twelfth grade and enroll in college as a SMET major; (2) to implement a summer
``bridge'' program for students entering Jarvis in the Fall that will impact 90%
success rate during the first year; (3) to develop an implement a Scholars program
customized to achieve 90% undergraduate retention and graduation rates and
result in at least 70% enrollment in graduate or professional SMET programs; (4)to
develop and implement a comprehensive faculty development program, develop
new curricular offerings and expand existing courses for improvement and (5) to
increase diversity and the number of SMET majors by 20% annually.
All proposed activities support the mission of the National Science
Foundation, ``to provide access to quality science education for all students'', and
the mission of Jarvis Christian College, ``to provide a quality education to increase
the competitiveness of its students in post-baccalaureate efforts.'' The extensive
evaluation process and the involvement of the total college community and the
community partners will insure its success. This proposed Jarvis Program
represents the model for ``Creating Windows of Opportunity for Success in the
SMET areas.''